EAGER - feasibility study in reconstructing Holocene drought history from sediment cores in Fallen Leaf Lake, CA

Work in the western US indicates that profound, long-term shifts in patterns of drought throughout the past 10-13,000 years (the Holocene) have had both historic and prehistoric impact on ecosystems and on humans. This grant will develop a long-term drought record from sediment cores in the northern Sierra Nevada, a climatically sensitive region. The project will focus on the alpine portion of the watershed where the effects of winter precipitation deficits are more directly measurable than in terminal lake basins. These effects include lowered lake levels during drought stages, warmer lake temperatures, variations in strength and depth of thermal stratification, and altered biotic structure. In particular, fossil diatom communities in lake sediments are expected to vary in response to drought, and may be used as a indicators of climate change and long-lasting droughts. An excellent diatom record potentially exists in sediments of Fallen Leaf Lake in the Lake Tahoe watershed for use as paleoclimate indicators, with expected multi-decadal to centennial resolution. Preliminary age models on cores taken in 2010 show great promise for developing a detailed chronology. The cores contain a continuous record extending back 13,300 yrs, with sedimentation rates averaging 1.4 mm/year. The team will test whether diatoms in sub-alpine lake sediment can serve as indicators of changes in winter precipitation, and whether changes in diatom, sedimentologic, and selected geochemical indicators can be related to drought conditions during the Medieval Climatic Anomaly and other Holocene long-term droughts. The lake is a good choice because it records large precipitation-driven lake level shifts, and the area's water balance and hydrologic response to drought is measurable. Preliminary data indicates shifts in the number of diatom species associated with a well documented multi-hundred year drought. The team will investigate diatom response to drought conditions by looking at organic geochemistry from discrete samples (% organic matter and C, N isotopes), compound specific geochemistry, and pollen analysis. In addition, the team will conduct X-ray fluorescence scans for biogenic silica and organic matter content at high resolution (0.2-0.5mm). All core proxy data will be cross-correlated using a variety of multivariate and cross spectral techniques. Regional tree-ring climatic records will be used as an independent means of validating hydrological variability.

The proposed research has larger impacts to society, and this data should be of interest to aquatic ecologists, natural resource managers, and climate scientists concerned with the long-term response of fresh-water aquatic systems to climatic change. The timing and effects of prolonged drought will also be of interest to anthropologists reconstructing the migrations of Native Americans in response to drier conditions, including the ancestors of the Northern Paiute, the Maidu, the Washoe, the Yokuts, and the West Mono. Further, this effort to better establish diatoms as indicators of climate variation could add to the number of tools used to interpret regional climate change, and its associated impacts on human activities. This project will provide ages and scanning XRF analyses needed to build a quality age model, and establish the basic sedimentologic framework for this set of Holocene cores. This framework is a necessary first step for all of the ongoing paleontologic and geochemical work that is underway with these cores by various graduate students and faculty members. It will also provide the discrete samples needed for the various specialized indicators (diatoms, organic geochemistry, pollen analysis) and analyses necessary for the diatom work. At present, 5 graduate students rely on these cores for their thesis and dissertation research, and will benefit greatly by additional age control, geochemical data, and samples. Cores and data will be archived at the National Lacustrine Core Repository, Minnesota.